Earth Partnership: Indigenous Arts and Sciences

Earth Partnership: Indigenous Arts and Sciences (EP) will develop and refine a model for integrating Indigenous and informal and formal K-20 educators in ecological restoration, project-based learning and professional development. EP will involve participants in Native habitat restoration on community spaces, school grounds and nearby natural areas as a context for intergenerational STEM learning across age, ecosystem, discipline, learning style, culture and place. EP integrates Native knowledge and core values including relationship, reciprocity, respect and responsibility with Western STEM concepts and processes. The project will integrate the expertise of university social, physical, life and learning scientists and community and tribal practitioners to design, develop and test informal STEM learning incorporating ecological restoration, citizen science and cultural diversity. EP grows out of a teacher professional development model funded by NSF and is a network that now includes participating individuals and organizations from many states. This network will enhance dissemination and provide a foundation for a larger project growing out of the results of this project.

EP will build capacity of Native and non-Native informal educators and citizens to work together to generate engagement among young people and adults with ecological STEM learning and stewardship. The approach will integrate culturally authentic resources, inquiry and citizen science process skills (e.g., data collection, analysis, ecological restoration, water stewardship) in multiple learning settings. Stronger multicultural, intergenerational and community partnerships will be supported to restore aquatic and terrestrial habitats through community-based stewardship projects and Service Learning. Through EP, Native youth will be encouraged to explore STEM careers that will meet future workforce needs for managing tribal resources and become knowledgeable citizens able to use critical thinking and analysis of STEM-related issues in their communities. The project will use a developmental evaluation approach to assess project planning processes and outcomes of educational programs.